New Directions in Cryptography for Electronic Commerce

This research focuses on enhancing the state of scientific knowledge
regarding cryptography and security in electronic commerce. The
investigators study new models and abstractions, and find novel
e-commerce applications for a wide range of cryptographic techniques.
The research is focused on four main areas: (1) Secure multi-party
protocols -- How can mutually mistrustful agents cooperate? (2)
Anonymity and privacy mechanisms -- How can the protection of
sensitive information be guaranteed by design? (3) Fraud detection and
prevention -- How can illicit profit be systematically reduced? (4)
Secure content distribution -- How can virtual classrooms, concerts
and bookstores be streamlined? Deeper connections are sought by
combining ideas from these areas.

Within the area of secure multi-party protocols, the researchers are
exploring efficient special-purpose protocols for e-commerce functions
of practical importance, to improve on the powerful but inefficient
completeness theorems of Goldreich et al. (1987), Ben-Or et
al. (1988), and others. Anonymity and privacy mechanisms under
consideration include new methods for deniable payment mechanisms.
For fraud detection and prevention, the investigators examine
adversary models such as malicious-but-rational and
malicious-but-uncoordinated faults, and new uses of lightweight cost
functions. The research in secure content distribution includes new
traitor tracing schemes, and new applications of zero knowledge
proofs.